Travel Grant for Attending 30th IEEE Symposium on Reliable Distributed Systems (SRDS)

This award provides travel grants to students and junior faculty to participate in the 30th IEEE Symposium on Reliable Distributed Systems (SRDS) which is being held in Madrid, Spain, October 4-7, 2011.